Oceanographic Instrumentation for 2010, R/V Blue Heron

A request is made to fund additional and back-up instrumentation for the R/V Blue Heron, an 86 foot Coastal vessel owned by the University of Minnesota and operated by the Large Lakes Observatory as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The request includes one item/system:

1) Nitrate Analyzer

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.